CPA: Conference Support Proposal: 2nd ACM/IEEE International Conference on Formal Methods and Models for Co-Design

Proposal to NSF CPA Cluster for Supporting Student Travel to the 2nd ACM/IEEE
International Conference on Methods & Models for Co-Design (MEMOCODE.04)

As computing systems are becoming increasingly complex, integrated to daily usable
artifacts such as cell phones, cars, hand-held devices, medical prosthetics and other wide
range of applications, the need for design methodologies which can guarantee successful
integration of hardware and software, functional correctness and reliability is gaining
importance. Today.s computing is no longer limited to servers, work stations and desktop
computing, but they are embedded everywhere, most importantly in the medical space, as
well as in the safety critical systems such as avionics control, automotive control etc.
However, historically hardware and software have been built separately, and both being
extremely complex, the methodologies that ensure correct construction of hardware or
software are themselves research topics. Yet, we are faced with the need for formal and
mathematical techniques to model and analyze systems which integrate both hardware
and software, because of the increasing reliance of human society on ubiquitous and
pervasive computing.

In 2003 the First International ACM/IEEE Formal Methods and Models for Co-Design
(MEMOCODE) conference, for the first time, brought together researchers who apply
formal methods in software engineering fields, and those who apply formal methods to
design and validate hardware systems. It was felt from the panel discussions, key note
talks, and informal discussions that formal method practitioners from both sides have a
lot of share in terms of knowledge, experience and techniques. Also, the hardware-
software co-design problem imposes an ever than before need for this symbiosis, which
was the original aims of creating this series of conferences. More importantly, the US
researchers present at the conference last year (in France), felt that there is a lack of
research activity in this important area of formal methods in the US, compared to the
initiatives and research activities in Europe. As a result, this year the conference is being
held in San Diego, California, to bring more US participants, and create a forum for US
researchers to exchange formal method ideas, techniques and creative initiatives. This
proposal seeks financial support from NSF to support US graduate or advanced
undergraduate students attending the conference for the first time, so that they get
exposure to various aspects of formal methods, and recognize the importance of formal
methods in system design, especially hardware/software safety critical systems. The
intellectual impact of this support from NSF would be that the increased attendance of
bright young students will fuel more research work in this very important area. The
European community has made much more progress than their counter parts in the US
due to a much less degree of interest by researchers to pursue formal methods. NSF can
make substantial contribution to the enrichment of educational and research objectives of
MEMOCODE. The workshop has some funding from sources other than NSF for invited
speakers and other expenses. Broader Impact of the requested NSF funding is that it
will provide travel support for students of US researchers, to encourage education and
research in the workshop topic. The emphasis will be on funding students who do not
otherwise have funding sources to attend the conference, and an attempt will be made to
fund members of underrepresented groups.